Genetic Analysis of Endocytosis in Yeast

95-06839 Davis Endocytic trafficking entails receptor uptake from the cell surface, and then transport through a series of poorly characterized endosomal compartments, where decisions must be made concerning recycling back to the surface versus delivery to the lysosome for hydrolysis. Because of the complexity of the overall membrane transport process and its consequent resistance to classical biochemical dissective analysis, the underlying molecular mechanisms that control and catalyze the various membrane transport steps remain largely unknown. This proposal describes a powerful method of genetic analysis in the yeast Saccharomyces cerevisiae that isolates mutants defective in the endocytosis of the yeast pheromone receptors. Surface pheromone receptor is required for the mating of the two haploid cell types. Under conditions where synthesis of new receptor is shut off, wild-type cells mate poorly due to loss of surface receptor to ongoing receptor endocytosis and degradation. Endocytosis-defective mutants retain receptor at the cell surface, mate, and can thereby, be easily isolated. Mutations isolated in the receptor genes themselves will define the endocytosis signals on the receptor proteins themselves. Mutations in other genes will define trans-acting functions required for endocytosis, and serve thereby, to identify elements of the transport apparatus. Preliminary results indicate that many of these ren mutants (defective in receptor endocytosis) will be late-acting, blocking endocytosis at post-surface transport steps. A pathway for yeast endocytic transport will be defined through the genetic ordering of ren mutants by epistasis analysis. Molecular cloning and sequence analysis of the encoded proteins will impart a new understanding of the molecules that catalyze endocytosis. The mechanisms that drive the fundamental processes of the eukaryotic cell -transcription, secretion, and the cell cycle -- generally have been well conserved through evolut ion from yeast to man. This appears to be true for endocytosis as well. Molecules identified through this proposed research, we anticipate, will allow isolation of the homologs that control endocytosis in mammals. %%% Research in this proposal focuses a variety of powerful genetic approaches on the process of receptor endocytosis, studied in the yeast Saccharomyces cerevisiae. Endocytosis is the process by which patches of the cell surface membrane are invaginated and internalized into the body of the cell. It provides a mechanism for uptake of essential nutrients into the cell, and by controlling the abundance of different receptors at the cell surface, it also serves to regulate the cell's communication and contact with the external environment. Selective internalization of surface receptors, both regulates the capacity for response to different extracellular hormones and also modulates contact with neighboring cells and beneficial symbionts. Not surprisingly, endocytosis plays a major role in disease processes as well. A variety of harmful agents -- viruses, bacterial endotoxins, and intracellular parasites -- make malevolent use of this process. Endocytic trafficking entails uptake of receptors from the cell surface, and then transport through a series of poorly characterized intracellular compartments, the "endosomes". Because of the complexity of this overall membrane transport process and its consequent resistance to biochemical dissective analysis, the underlying molecular mechanisms that control and catalyze the various membrane transport steps remain largely unknown. Our newly developed genetic approach provides a straightforward way of experimentally dissecting this complexity. A key first step will be the isolation of a collection of mutants that block endocytosis of the yeast pheromone receptors. Cell surface pheromone receptor is required for the conjugal mating of the two yeast sexes. Under experimental conditions where new receptor synthesis has been shut-off, the yeast cells mate quite poorly due to the loss of cell surface receptor to ongoing endocytic internalization. Mutants, specifically defective for the endocytic process, fail to internalize receptor, retain it at the surface, and consequently show robust mating. Such mutants are easily isolated. Endocytosis-defective mutations that map to the receptor genes themselves, will identify the endocytosis signals, that is those features of the receptor proteins which direct their own uptake. More exciting are mutations in other genes. These will identify new proteins, elements presumably of the molecular machinery that catalyzes and effects this endocytic uptake. We expect that the subsequent molecular cloning and sequence analysis of these novel proteins will impart a new understanding of the molecules that catalyze this complex transport process. The various mechanisms that drive the fundamental processes of the eukaryotic cell, generally have been found to be quite well conserved through evolution, from yeast to man. Endocytosis is no exception, we anticipate therefore that the molecules identified in the yeast Saccharomyces cerevisiae by this research should provide an entry into the molecular analysis of endocytosis in animal cells, allowing the isolation and characterization of the analogous proteins from mammals. ***